SBIR Phase II: Solid-State Heating and Cooling System Using High-Performance Thermoelectric Materials

The broader commercial impact of this Small Business Innovation Research (SBIR) Phase II project is the development of a next-generation system for heating and cooling buildings using solid-state technology. This project will establish a faster, more cost-effective manufacturing process to make these systems readily available to households. This technology allows homeowners to replace traditional conditioners with quiet and highly reliable heat pumps. These new solid-state heat pumps run entirely on electricity and feature no moving parts, making them very durable.

This project utilizes novel additive ink-based fabrication to establish a scalable, cost-effective manufacturing workflow for high-performance thermoelectric solid-state heat pumps. By fine-tuning precursor composition, rheology, and thermal processing, the project will optimize n- and p-type thermoelectric inks to achieve higher material figures of merit. A core technical innovation is the deployment of at-scale thermoelectric leg printing. To achieve performance parity with incumbent heating, ventilation, and air conditioning (HVAC) technologies, these scalability gains are coupled with a systematic reduction in thermal interface resistance through the integration of advanced, thermally conductive materials. To ensure commercial viability, the project leverages high-throughput, industry-standard processes—such as automated pick-and-place assembly—to achieve mass-production yields. Rigorous reliability testing via cyclic loading will identify and resolve failure modes through iterative device design and assembly improvements.